All Systems Go!

9450278 Boynton The Engineering Design Experience (EDE) - designing, constructing, testing and evaluating, and communicating - is incorporated in three, 6-8 week units for middle school students. Each unit is based on a "technological challenge" which requires the students to work as a design team to build and present their solutions to the challenge. The design challenges include development of a toy, a vehicle and an amusement park ride at sixth, seventh and eighth grades respectively. The materials engage students in authentic engineering challenges which become the context for learning mathematics, science, technology education, social sciences and language arts concepts and skills appropriate to middle school students. The students, teachers and community members form learning teams in which students assume various engineering and marketing roles. The products include print materials, hands-on kits, and videos and videodisc reference materials, complemented by software tools. The materials are brought to schools by engineers from industry who interact with the students and teachers as they engage the challenges. ***